Separation and Analysis of Proteins and Nucleic Acids

The goal of this proposal is to provide the essential practical counterparts to lectures, textbooks, and the primary research literature relevant to the study of proteins and nucleic acids. The liquid chromatography system and a scintillation counter acquired are used to introduce students to these instruments in the context of structured laboratory investigations in intermediate and advanced courses. Subsequently, students are given the opportunity to integrate their literature-based and practical knowledge in the design and performance of independent research projects that incorporate chromatographic methods and use of radioisotopes.